Atmospheric Turbulence and Diffusion in the Tropics, Indo- U.S. Collaborative Research, Award in U.S. and Indian Currencies

9313256 Raman Description: This project will support two scientists, Dr. Sethu Raman, of North Carolina State University, and M.P. Singh, of the Indian Institute of Technology, New Delhi, and their graduate students, to continue and complete a collaborative research on the observations and modeling of atmospheric turbulence and diffusion at low wind speeds. The main objective of the study is to determine the variation of turbulence and diffusion processes in the surface layer during daytime convective conditions and nighttime stable conditions. Another part involves test and development of a reliable model to predict diffusion in low wind speeds. Scope: This project deals with modeling of weather conditions in a tropical area, which applies to many of the countries in South Asia and South East Asia. The two scientists have set up elaborate facilities in India for measuring atmospheric conditions at all times, and are developing and adapting computer models that can be tested and modified to best describe the prevailing conditions in the region. The completion of the work is important to reach reliable models of dispersion at low wind speeds. Such models have many applications such as in predicting dispersion of industrial or chemical pollutants in warm climates. The interaction between the U.S. and Indian sides is clearly beneficial to the research of the two scientists and in developing new human resources in the two countries. ***